EPSCoR Graduate Fellowship Program (EGFP): Building a Next-Generation Rhode Island Workforce at the AI-Biology Interface

The National Science Foundation (NSF), NSF EPSCoR Graduate Fellowship Program (EGFP) supports EGFP designated institutions/programs in EPSCoR jurisdictions by providing funding for graduate fellowships for eligible applicants. Institutions receive a total of three years of stipend and associated cost-of-education (COE) allowance for each NSF EPSCoR Graduate Fellow.

This award at Brown University seeks to enhance research competitiveness and capacity through an investment in talent development. Fellow research topics will align with goals and programs supported by the NSF Directorate for Biological Sciences (BIO), Directorate for Computer and Information Science and Engineering (CISE), and the Directorate for Mathematical and Physical Sciences (MPS). Research topics and activities will focus on training fellows in cross-disciplinary work in Artificial Intelligence (AI) and Biology to prepare them for research careers in industry. The program is designed to keep these high-quality graduates in Rhode Island by working with local industry partners.